Vulnerabilities Analysis

CCR-0311723

Vulnerabilities Analysis

Matt Bishop

This project will develop and test a new classification scheme
for security vulnerabilities in existing computer systems and
software. A vulnerability exists when a system meets certain
conditions, the precise conditions dictating the nature of the
vulnerability. The classification scheme will be based upon these
conditions. The goal of this research is to: (1) determine
whether every vulnerability has a unique, minimally-sized set
of such conditions; (2) determine whether vulnerabilities share
these conditions; and (3) determine whether, for a large enough
set of vulnerabilities, the number of conditions is less than
the number of vulnerabilities. The methodology will be to
examine vulnerabilities in open source systems and programs, and
determine the exact conditions under which a vulnerability
can be exploited. The expression of the conditions will be refined
iteratively, as more is learned about the conditions needed to
exploit vulnerabilities.

The significance of this work is that it will lead to a deeper
understanding of why vulnerabilities occur in systems, how to
detect them, and how to prevent them. Its broader impact is that,
if the hypotheses are true, negating conditions on a system could
eliminate vulnerabilities not known at the time. Vendors and
security analysts would be able to use the approach we will develop
to test systems for vulnerabilities more readily than the current,
hit-and-miss methods. Finally, this work would provide a
more rigorous basis for developing and teaching methods of
writing programs with fewer vulnerabilities than occur now.